Presidential Young Investigator Award: A Simulation Environment for the Analysis of Transient Faults in VLSI Circuits

Saleh This research is on simulation techniques and modeling approaches for analog circuits. Accuracy of the analysis is the key goal. High-level modeling approaches are being developed for functional blocks in the circuits that improve the overall efficiency of simulation. Software is being developed that checks for the integrity and robustness of new macro-model primitives before they are used in a simulation. A consistency checking and optimization tool is being used to verify and correct the performance of a given parameterized macro-model. The new models and algorithms are being integrated into a multi- level analog simulation tool that includes the ability to perform circuit level, functional level and behavior level simulation within one simulation run. Circuits considered include sigma- delta modulators, phase-locked loops, and switched capacitor circuits among others.